Middle Atmosphere Radiation, Dynamics, and Chemistry

In recent years environmental concerns about anthropogenic perturbations to the earth's middle atmosphere have led to the development of many radiative photochemical-dynamical coupled models to study basic chemical and physical processes and their long term effects. This grant aims to develop an improved computer model of infrared radiative cooling/heating based on recent research by the principal investigator. Research on radiative damping in the middle atmosphere will be performed to investigate its importance in wave mean-flow interactions. Related work will focus on improving our understanding of gravity wave saturation by studying gravity waves radiating from a region of wave forcing in the vicinity of a critical level through geostrophic adjustment or instability. Finally, an effort will be made to understand why ground-based microwave measurements of mesospheric H2O seasonal concentration variation inconsistent with SME derived semiannual variations of 03. The H measurements show very large semiannual variations which are consistent with SME derived semiannual variations of 03 densities at 80km, while the inferred O concentrations at 80 km show a predominantly annual variation well correlated with the H2O measurements but, on the basis of current photochemical theory, inconsistent with the seasonal H 03 density variation.